Acquisition of a 300 MHz Solid State NMR Spectrometer.

This is a proposal a 300 MHz solid state NMR spectrometer that will be used for research which addresses important topics in the fields of biomolecular structure and surface and polymer chemistry. The biophysical projects will investigate the structure and mechanism of membrane proteins, with the aim of understanding the role of conformational changes in signal transduction and the role of membrane inserton in the gating of channels. The instrument will also enable high field studies which will compoement an existing zero field NMR program to investigate the chemistry of catalytic surfaces. Finally, this instrument will enhance a strong program in polymer science, with projects ranging from the investigation of structure and dynamics in polymers with powerful new two dimensional solid state NMR techniques ot the characterization of an exciting new class of materials, biopolymers. This is an ideal environment for expanding the application of solid state NMR to answer biological questions, because of the confluence of several soid state NMR spectroscopists and numerous investigators in the bioligical science who already participate in an interdisciplinary graduate program in molecular and cellular biology.